Research on Subtle Factors (Cues) Which are Important in the Effective Operation of Groups

This project is funded as a Phase I award under the 1989 Small Business Innovation Research Program solicitation. The objective of this project is to (a) examine conditions under which task and dominance cues impact the attainment of status in groups, (b) examine interventions to overcome the interaction inequality faced by women and minorities, and (c) examine special conditions faced by women who attempt to increase their status in task groups.